An Optimization Framework for the Estimation of Material Properties of Deformable Materials from Volumetric Deformation Measurements

This research involves the development of optimization techniques for
the automatic determination of the material properties of deformable
solids via modern imaging and scanning technologies (e.g. MRI, CT,
etc.) with particular focus on hyper-elastic materials under large
deformation, high strain rates and often plasticity. Such materials
are characteristic of biological soft tissues (e.g. muscle, fat, skin
etc.) and their determination is critical to creating accurate,
subject specific simulations of the function of these anatomical
structures. Simulation using modern computational techniques is an
increasingly reliable tool for answering many questions in biomedical
engineering ranging from basic functionality to post-surgical response
of complex regions of the anatomy. However, reliable results are only
possible when accurate constitutive descriptions of the simulated
materials are available. Although much work has been done to develop
and determine constitutive models for biological soft tissues, most
material parameters have been estimated from cadaveric specimens or
from a small group of individuals. This is an unacceptable
simplification given the widely established variation in material
behavior across subjects and from the material changes inherent in
cadaveric specimens. This research will establish techniques for the
near-automatic determination of subject specific behavior necessary to
continue the relevance and reliability of biomedical simulation of
soft tissues. Though motivated by biomedical simulation, the
techniques developed in this research transcend the boundaries of
biomechanics and will provide a more general framework for determining
material properties for engineering applications.

The PI and collaborators will use their combined experience in
constitutive modeling, finite element simulation of soft tissues, mesh
generation, optimization and medical imaging to formulate and develop
methods for the determination of constitutive parameters from imaged
behaviors. This task is formulated as an inverse problem of fitting a
constitutive model to observed material motion (involving imaging,
segmentation and denoising). The PI and collaborators will draw upon
their prior experience with similar techniques for estimating muscles
activation parameters and muscle material properties from material
deformation. The capstone problems to be solved involve accurately
tracking material particle trajectories with imaging technologies and
approximating the Jacobian of elastic equilibrium configurations of
soft tissues with respect to unknown material parameters in a given
constitutive model. With this functionality, the PI and collaborators
will determine the suitability of established optimization techniques
and develop novel approaches (both engendered by the successful
solution of previously mentioned capstone problems).